Growth of Nickel-Base Superalloy Single Crystals

9322353 Kuo Nickel-base superalloys are critical materials to our aerospace industry and to some areas of our energy industry. Single crystals of nickel-base superalloys have demonstrated excellent performance in high-temperature gas turbines. This grant supports a university-industry collaboration on the growth of shaped single crystals of nickel-base superalloys by pulling from liquid melts. Single crystals are grown at the University of Wisconsin and tested at Howmet Corporation, a major producer of single crystals of nickel-base superalloys for high-temperature gas turbines in the U.S. The objective is to demonstrate the feasibility of growing low-cost, high-quality single crystals of constant cross-sections (rods, bars, sheets and tubes). These crystals are useful for applications where complicated shapes are not required, e.g., single crystal sheets for turbine engine combustor liners (where gas mixtures ignite). An advantage is that numerous steps involved in the preparation and removal of ceramic shell molds are not required and the crystals are not limited to relatively short lengths, unlike conventional crystal growth of nickel-base superalloys by investment casting. Attention is focused on growth of single crystal sheets up to 2 feet long. An improved technique for pulling shaped crystals, recently developed at the University of Wisconsin's crystal growth laboratory, is used and heat treating and preliminary screening tests of the single crystals are conducted by Howmet. %%% A videotape movie showing the results of the proposed work will be made and copies distributed to the superalloy industry. It will also be used in two undergraduate materials processing courses at the University of Wisconsin. ***